Northwest Girls Collaborative Project

Throughout the Pacific Northwest there currently exist numerous organizations providing
valuable but uncoordinated activities and support services related to motivating and supporting
girls interest in SMET careers. Twenty such organizations in Washington State alone.
The activities of these groups are not coordinated and in fact, some groups appear to be in
competition for access to girls and to resources, particularly for resources from the corporate
community. This funding source, in the face of recent layoffs, is less inclined to support such
programs. Under these circumstances it becomes increasingly important to coordinate existing
and evolving activities to effectively utilize resources.
This project includes three primary activities:

Dissemination and Outreach: In partnership with the Northwest Girls Coalition,
document and promote coordination and collaboration among girl serving SMET
programs in Washington and Oregon and establish an on-going communication system
linking these organizations.

Creation of a Program Evaluation Rubric: In collaboration with the Northwest
Regional Educational Lab create a program rubric reflecting best practice models and
program assessment tool based on the rubric.

Mini-Grants: With the support of Washington and Oregon MESA, we will offer mini-
grants to a minimum of twenty-two girl-serving STEM focused programs to support
collaboration, assessment activities and projects related to addressing gaps and overlaps in
service.

The project is under the guidance of a Champions Board made up of individuals such as Dean of the College of Engineering at the University of Washington, current presidents of the state Math and Science teacher associations, and representatives from both the Washington and Oregon state education departments.